A Proposal for the Improvement of the Instrumentation of theMathematics Laboratory at Langston University

Students are learning calculus in a laboratory setting that allows experimentation and discovery learning and focuses on concepts rather than manipulations. The laboratory is equipped with IBM PS/2 computers running Derive. The institution will contribute an amount equal to the award.